Structured Ring Spectra and Chromatic Stable Homotopy Theory

DMS-0204129
Paul G. Goerss

Homotopy theory is the study of topological phenomena that
remain invariant under fairly flexible sorts of continuous deformations. Most basically, we seek to compute and to
understand homotopy classes of maps between finite simplicial
or CW complexes, perhaps after some sort of stabilization.
Computation and understanding are not the same: we have forty
or more years of computations, but only lately have we begun
to have the language to in which to make a coherent theory out
of the data we have. This project is, therefore, as much about exploring and refining the language as it is about calculations
-- although there will be a mixture of both. The entry point
is the observation that any cohomology theory with a good
theory of Chern classes gives rise to a formal group law
and, hence, a formal group. Conversely, given a formal group
we can ask whether there is an associated cohomology theory.
These cohomology theories then delineate the finer structure
of stable homotopy theory.

This is the chromatic picture of stable homotopy: we seek
to use the algebraic geometry of formal groups to organize and
direct investigations into the deeper structure of computations
and theory. This project seeks to develop this point of view
in two directions, one local and one global. The first, or
local, direction is an investigation into K(n)-local homotopy
theory in general and into the K(n)-local sphere in particular.
The second, or more global, direction, would be to make systematic
our knowledge of structured ring spectra using stacks and
the moduli stack of formal groups as the basic parametrizing
device.